Conference: Mid-Atlantic Mathematical Logic Seminar

This award supports the Mid Atlantic Mathematical Logic Seminar (MAMLS), an ongoing program of grassroots meetings in mathematical logic around the northeastern United States, and the first meeting will be the Northeastern Model Theory Day, to be held on April 5, 2025 at Towson University. This region has a substantial population of experts in mathematical logic, ranking, as a group, on a par with any region in the world. The decentralized nature of the discipline in the northeastern US makes meetings all the more essential. The conferences in the MAMLS program will foster new collaborations, train students, support early career researchers, and broaden the base of logicians in the region.

Other series sponsored by this grant include the biannual New England Recursion and Definability Seminar (NERDS), the annual meeting Groups, Logic, and Dynamics (GLaD), and the flagship MAMLS meeting traditionally held at Rutgers University every fall. Future meetings will be announced on the MAMLS webpage at https://nylogic.github.io/MAMLS.html.